Understanding Titan's Climate through Seasonal Changes in Methane Abundance

Titan, Saturn’s largest moon, is the only solar system body apart from Earth with an active hydrologic cycle, the cycle of evaporation into the atmosphere, condensation into clouds, and rain or snow back onto the surface. However, on Titan, methane, not water, serves as the primary component in this cycle. Leveraging the unparalleled capability of ground-based observations to observe and study Titan’s atmosphere, the project will determine the amount and distribution of methane in Titan’s atmosphere over seasonal timescales. This study will provide key information about the photochemical, hydrologic, and geologic processes that make Titan unique among the Ocean Worlds and offer critical insights into understanding the habitable potential of this unique body. The project will engage the broader community through the development of a user-friendly graphical user interface that will introduce students and next-generation scientists to the complex physical processes behind radiative transfer codes. Undergraduate students will gain experience in conducting planetary science research to develop skills that enhance their potential for their academic/industry careers.

The source of Titan’s methane is one of the greatest unanswered questions regarding this distant moon. This proposal is timely as Titan is now entering a season in which comparisons can be made to initial observations acquired decades ago. This will permit, for the first time, intra- and inter-seasonal comparisons of Titan’s atmospheric circulation and methane distribution. The retrievals proposed here will provide valuable constraints to these models, thereby enabling a more accurate understanding of the complex physics driving Titan’s hydrologic cycle. The project will update the PyDISORT radiative transfer code to allow variable atmospheric methane profiles to derive near-surface humidity and assess the relative spatio-temporal variability in retrieved methane abundance.